TC: Medium: Privacy and Declassification Policy Enforcement Framework

Information systems that handle personal information must adhere to
legal regulations, corporate privacy policies, and contractual
agreements designed to protect personal privacy. Relying exclusively
on application designers and developers for such assurances is
unrealistic. There is a need for methods and tools that can identify
errors in the handing of personal data and provide formal assurances
that personal information is handled appropriately.

This project is developing a software development framework that uses
novel language-based techniques to ensure that software enforces
privacy policies. Privacy policies (based on legal and regulatory
requirements) are formally specified in temporal logic, and identify
circumstances under which information can be shared (based on criteria
such as the roles of individuals involved, prior events, and whether
the data has been aggregated) and future obligations that are incurred
as a result of the information sharing. The framework consists of
policy analysis tools, a programming language, program analysis tools
that verify both privacy and declassification policies are enforced,
and a runtime environment. Used in concert, these components produce
distributed information systems that verifiably handle personal
information appropriately.

The framework being developed by this project will address problems
faced by many information systems. However, the project will focus
especially on the needs of the medical industry, both with respect to
patient records and clinical trials. As medical practice transitions
to electronic medical records, the need for high-assurance systems
becomes increasingly acute. This project will develop the
capabilities needed to verify that electronic medical records
systems comply with applicable privacy policies.